Tools for Open Access Cyberinfrastructure

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

This project proposes to investigate and implement a variety of tools for enhancing the very widely used and popular Arxiv.org infrastructure, based on information filters for assisted service discovery and selection, text-mining, information genealogy, automated classification and identification of composite resources, data-mining, usage analyses, matching and ranking heuristics, support for next-generation document formats, and semantic markup.